Development of a Microcomputer-based Laboratory Facility forRemote Sensing and Geographic Information Systems Instruction

The Earth Science department is developing a microcomputer-based laboratory to augment capabilities in undergraduate remote sensing/geographic information systems (GIS) education and research. Networking of three Map and Image Processing Systems workstations and peripheral hardware and supporting software will provide students with training and instruction in the acquisition, processing, and displaying of spatial digital data. Importation of satellite/airborne data from computer compatible tapes using an open reel tape deck will enable greater access to information stored on 9- track tapes and will introduce the student to a variety of data sources and formats. A digitizing tablet will permit students to generate data bases from readily available hardcopy sources for subsequent analysis via image processing and GIS modules. A laser printer will provide high quality graphics output suitable for classroom presentations and research reports. This equipment will improve the quality of remote sensing and GIS coursework and research done by students in earth science, earth science education, geography/cartography and geology, enhancing their preparation for graduate work and professional employment. The university will match the award with an equal amount of funds.